Mathematical Sciences: Conference on Noncommutative Ring Theory to be held May 23 - 25, 1988, in DeKalb, Illinois

This conference in non-commutative ring theory concentrates on some special classes of ring, including rings of differential operators, and will feature principal speakers from England as well as the United States. Support for graduate students and young investigators is available. Ring theory is a core area of algebra with connections to all areas of mathematics. The topics of the conference stress those areas with strong connections to analysis, topology, linear algebra, and combinatorial group theory.